Sspectral Numerical Solution of Stochastic Partial Differential Equations

There does not exist a general analytical method for solving flow through a randomly heterogeneous porous medium. Current methods are either perturbation methods or Monte Carlo simulations. The former can only deal with small variances while the latter is very time consuming or expensive to compute. This Expedited Award for Novel Research will explore the applicability of the spectral method for computational efficiency for flow through random porous media. Spectral methods are not new to nonlinear problems but had not been applied to this problem. The Institutional support is adequate and the PI is qualified to carry out the research, I recommend support.